NSF Research Grantees Workshop for Earthquake Hazard Mitigation Programs

9404353 Saiidi This project is to hold a workshop for the principal investigators who have worked on hazard mitigation projects funded by the National Science Foundation. The principal investigators will make presentations about their research work in progress. This workshop will provide an opportunity to the PIs to discuss their research approach with other PIs, learn about other on-going research projects and exchange valuable scientific information well before its publication in Scientific literature. ***